Collaborative Research: Nonseparable Preferences, Human Capital Accumulation, and Female Labor Supply

This research is an empirical investigation of female labor supply. The first part focuses upon how experience on the job affects future wages and labor supply decisions; the second part looks at joint labor supply decisions taken by married couples. The estimation is complicated by the fact that labor market conditions change with the business cycle, fluctuations that affect the decisions of individuals and households, which in turn feed forward into future wage and employment rates. Since previous research has largely ignored this dynamic phenomenon, an important component of the research is to develop econometric techniques from the underlying economic framework which can implement with the proposed empirical strategy. This research is important because it will provide a deeper understanding of factors that affect the participation and success of women in the labor market.